Belief Dynamics and Action Selection in Qualitative Approaches to Reasoning about Uncertainty

Concerning reasoning and decision making in uncertain environments. The standard approaches to dealing with this uncertainty are quantitative, and typically make use of probability theory. The long-term goal of this project is provide more qualitative methods that can be used effectively by agents reasoning about uncertainty. The project focuses on the interplay between beliefs and actions, and how this can be dealt with in a qualitative framework. Of particular interest are two uses that will be crucial in attaining the long-term goal: belief dynamics and action selection. Belief dynamics involves understanding how an agent's beliefs should change after the agent makes an observation or performs an action. To capture belief dynamics, a formal model for belief is used that includes time explicitly. The ultimate goal of this research is to provide a basis for a general theory of qualitative belief dynamics. Action selection involves understanding how an agent should act, given his beliefs. The usual decision theoretic approach uses a utility function describing the agent's preferences and a probability distribution describing the agent's beliefs. But in many situations it is infeasible to completely quantify uncertainty. An alternative approach that dispenses with preferences describes the agent's choice of action by a program directly specifying the behavior of the agent in terms of his beliefs, allowing compilation of plans directly from the specification that we want it to satisfy.